2005 Epigenetics Gordon Research Conference Held at Holderness School, New Hampshire on August 7-12, 2005.

Project Summary, 2005 Epigenetics Gordon Research Conference

The study of epigenetics concerns the enormously complex mechanisms by which
genotype gives rise to phenotype. It pertains to every aspect of development in virtually
all organisms and has been a good reminder that the essence of how genotype gives rise
to phenotype does not, after all, reside completely in DNA. This proposal requests
support for the sixth Gordon Research Conference on Epigenetics to be held at
Holderness School, New Hampshire, August 7-12, 2005. Invited speakers are leading
researchers working on prokaryotes, fungi, ciliates, plants, worms, insects, and mammals,
and their presentations will cover some of the most fascinating areas of science today,
including molecular and cellular memory, cellular de-differentiation, DNA asymmetry,
DNA methylation, RNA interference, parental imprinting, X-chromosome inactivation,
paramutation, ploidy, switching, environmental stress, genome defense systems, position
effects, histone modifications, mammalian cloning, and stem cell development. Of
particular interest are newly-recognized phenomena whose underlying mechanisms are
currently mysterious.

The 2005 Gordon Research Conference on Epigenetics will provide a unique setting for
researchers working on this broad spectrum of mechanisms and organisms to come
together and exchange results and ideas. With a limited enrollment and ample time for
formal and informal discussions, the cross-disciplinary environment of this conference
will foster the innovative thinking and novel collaborations that are critical for the
success of researchers in the field of epigenetics. Finally, as has always been the case
with this series, the 2005 Conference will place a high priority on promoting the science
and careers of young investigators and increasing the diversity of the scientific
community.